Travel: NSF Student Travel Grant for 2026 IEEE/ACM International Symposium on Microarchitecture (MICRO)

This proposal requests $20,000 in NSF student travel support for the 59th IEEE/ACM International Symposium on Microarchitecture (MICRO 2026), to be held in Athens, Greece, on October 31-November 4, 2026. MICRO is a premier conference in computer architecture, microarchitecture, compilers, chips and systems. The requested funds will support approximately forty flat partial awards of $500 each for eligible undergraduate and graduate students from U.S. universities. Providing students with opportunities for participation in research conference can further help enhance their technical proficiency and foster innovation in computing research.